Workshop on the Physical Aspects of Cellular Organization to be held on August 11-September 5, 1997, at the Aspen Center for Physics, Aspen Colorado.

9722061 Siggia This award is to provide partial support for a Workshop on Biophysics of the Cell, to be held August 11 - September 5, 1997, at the Aspen Center for Physics, Aspen, Colorado. The Workshop will bring together and foster interactions among cell biologists, biophysicists, and physicists (theoretical physicists working in areas of soft condensed matter and dynamical systems). ***